Research Experiences for Undergraduates at the University of Chicago

Dr. Gregory L. Hillhouse and other members of the Chemistry Department of the University of Chicago are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, eight undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-inorganic, organic and physical. A unique feature of this program is targeting underrepresented groups from the midwest.